Dissertation Research: Phosphorus Cycling and Conservation Mechanisms in the Rooting Zone of an Oligotrophic Pitch Pine Forest

Phosphorus losses from many oligotrophic forests are extremely low due to a high level of biological control over P cycling within the forest floor. Mineralized phosphorus is quickly taken up by roots and microorganisms, preventing its leaching from the rooting zone or its fixation by mobil aluminum. As a student of Dr. Vogt, Mr. David Publicover will examine the role of ectomycorrhizae in the cycling and conservation of P within the forest floor of an upland pitch pine forest in the New Jersey Pine Barrens. He hypothesizes that mycorrhizal tissue acts as an important storage reservoir for P released by decomposition outside of the main growing season. This storage minimizes formation of insoluble P- Al compounds and leaching of P in organometallic-phosphate complexes. Monthly sampling is used to determine seasonal patterns of P and Al storage and movement. Sampling includes measurement of plant biomass accumulation, root and mycorrhizal productivity and turnover, input to and leaching from soil horizons, and P and Al fractions in soil horizons. Primary factors controlling P leaching from the rooting zone will be determined. Experimental manipulations undertaken to investigate specific aspects of P conservation include: removal of ericaceous plants, augmentation and removal of litterfall, P fertilization, and augmentation of available Al. This work on P conservation mechanisms in the root and mychorrhizal system addresses important issues in the area of forest management and conservation. This information will help in the preservation of both temperate and tropical forest ecosystems. Dr. Vogt is a very experienced and productive scientist who is well qualified to direct the doctoral research of David Publicover. Mr. Publicover is also highly qualified with experience in forestry, forestry management, forest research and instruction. The School of Forestry and Environmental Studies at Yale University has exceptional resources for supporting this research effort.